Urban Mathematics, Science, and Technology Leadership Project

Through this project, Brooklyn Technical High School and its partners provide summer and follow-up school inservice, mentoring and leadership development experiences for 72 New York City high school teachers. These teachers, in turn, become teacher/leaders for many other teachers in hands-on uses of technology in science and mathematics. Over the three years of the project, the teachers create appropriate lessons, devise strategies for incorporating them into the curriculum, and other teachers in these techniques. The participating teachers learn to develop materials for their own classrooms based on what is currently used in the junior and senior pre-engineering curriculum at Brooklyn Technical High School. Science content with mathematics is emphasized using cooperative problem solving models with hands on learning. Technology and computer are integral parts of the process.